REU Site Continuing Award: Undergraduate Research in Computer Science and Computational Physics

This proposal will bring twelve undergraduate students for a ten week session at Syracuse University in the summer of 1992. At least seven will be from locations external to Syracuse University. The program will combine the resources of the Syracuse Center for Computational Sciences, the Northeast Parallel Architecture Center, the Department of Physics, and the School of Computer and Information Science. A particular effort will be made to attract women, minorities, and persons with disabilities. The areas from which the projects will be selected include the following: parallel computing software and algorithms, pattern recognition and computer vision, neural networks, optimization problems, virtual reality, computational condensed matter physics, statistical mechanics, nonlinear dynamics, and use of computers in education.